1992 Solid-State Sensors and Actuators Workshop-- Participant Support - Hilton Head, South Carolina, June 1992

This grant provides travel assistance to enable attendance by about 30 graduate students at 1992 Solid-State Senors and Actuators Workshop, Hilton Head, South Carolina, June 1992. This important conference is held every two years, and provides an opportunity for U.S. researchers to gather and discuss progress in the field of microelectromechanical systems. Strong student participation is hallmark of the workshop, and about one third of the papers may be presented by students.